Proposal to Establish an REU Site in Computing and Information Science at Caltech

This project will establish at California Institute of Technology a site to provide research experiences for 10 undergraduate students during the summer of 1990. Some of these students will come from institutions other than Cal Tech and these will be paired with undergraduates from Cal Tech. Student selection is competitive based on proposals submitted by students addressed to the many areas of faculty competence in computing and information science at Cal Tech. These areas include error correcting codes, high level languages, computer vision, and telephone communication systems. All students will be required to submit bi-weekly and final written reports on their research, and will be encouraged to prepare papers for publication.